Development of a Process Instrumentation and Control Laboratory

This project is to develop a Process Instrumentation and Control laboratory which will complement an undergraduate control course, with the same title, which is the main course in the Controls Option at this Institution. The project is focused on practical process control loop design and implementation using modern instrumentation. The goal is that after completing the course with the laboratory, the students will have learned practical as well as theoretical aspects of process control. To this end, a network of six PCs equipped with data acquisition cards will be purchased for both software analysis and design and for controlling dynamic systems using digital computers. Typical transducers will be introduced and specific processes and systems will be controlled using commercially available instrumentation, actuators and controllers. The project will also enable the introduction to the students of programmable logic controllers, as used extensively in industry today.